NSF Young Investigator

9457245 Yin The aims of the research to be carried out by the NYI are to engineer task-oriented molecular and macromolecular systems employing natural selection as a tool. Viruses are to serve as model systems and targeted tasks include self-assembly, molecular recognition, genetic programming, and self-optimization. ***